Damage Tolerance in Mircoelectronic Packaging

9310085 Liu The purpose of this research initiation award (RIA) is to conduct research to determine the thermomechanical properties and behavior of VLSI semiconductor devices. Experiments and analytical studies will be performed to measure the material response and the interfacial strength for various bi-material combinations such as thin specimens of metal/polymer, silicon/metal, fiber reinforced layer/metal, and fiber reinforced layer/patterned metal at elevated temperatures and various moisture levels. The emphasis of these experiments will be on determining the mode dependent interface fracture toughness for delamination. Then, damage tolerance analyses of packaging devices, based on analytical/numerical modeling, will be performed and the results will be compared to data obtained from experimental test chips. ***